A Nationwide Publication for Science Teachers: Teaching Science Through Science Fiction Films

This project will create a student workbook and teacher's guide that will enable ninth and tenth grade teachers to incorporate science fiction films into their teaching of general science. Begun in 1984 with NSF support, the teacher's guide provides an analysis of science fiction films with respect to physical principles that are either illustrated or violated in the films. The current project will improve this guide in preparation for publication and will develop accompanying student materials. The potential use of science fiction films in science classrooms is enhanced by the availability of many of the films on videotape and by the wide availability of videocassette players both in the schools and in homes. Preliminary evidence suggests that student attitudes toward science are affected positively by use of the materials and that students' motivation to continue studying science is increased.